CAREER: Global Modeling of Long-Range Transport of Tropospheric Ozone and Mercury

The research component of this CAREER project involves global three-dimensional (3-D) modeling of the tropospheric chemistry of ozone and mercury. Specifically, the PI will address long-range transport of ozone and its precursors across the North Pacific and will compare modeling results with data from various ground-based and airborne field campaigns. This work will provide a systematic examination of meteorological/chemical mechanisms leading to long-range transport events, as well as case studies of trans-Pacific pollution transport events. The second project will apply the same model, augmented by a newly developed mercury module, to study sources, chemical transformation, and long-range transport of mercury.

The educational activities will include the development of web based course material, the design of a new project-based graduate class in atmospheric chemistry modeling, mentoring of graduate and undergraduate students, and participation in mentoring programs at the PI's institution for women graduate students in science and engineering.